Mediating Influences on the Effect of Information Frame in Judgment and Decision Making

The manner in which a key source of information is presented or "framed" appears to have an effect on judgments and decisions that is both powerful and generalizable. While initial work in the investigator's laboratory supported the robustness of this effect, their recent research suggests that a variety of mediating factors may influence the effect of information frame. A central theme of this program of research is to use information framing manipulations to understand the interactive effects of a variety of factors that influence judgments and decisions. The proposed studies will attempt to move beyond demonstrations of framing effects to provide empirical evidence of mediating factors, develop models that incorporate these factors, and provide implications for understanding individual and managerial decision making.